Technical Support for Seismological Studies in the Central United States

9905328
Mitchell

This award provides funding for the construction and testing of a prototype beam-balance tiltmeter to be used in seismometer installations to remove noise in the seismic (ground motion) signal that is due to the effect of tilting of the ground at the observation point. Such a device will improve the signal-to-noise-ratio of modern broadband seismometry. The instrument development and construction will be carried out in the Department of Earth and Atmospheric Sciences at Saint Louis University.
***